ITR: Computational Induction of Scientific Process Models

This interdisciplinary, interinstitutional collaborative research effort
aims to develop a framework that unifies two separate but central themes
in information technology -- computational simulation of models to explain
important phenomena and computational induction of knowledge from observed
regularities in data. Unlike most previous work in machine learning and
data mining, the approach emphasizes methods that generate knowledge in
established scientific formalisms, incorporate domain knowledge where
possible, focus on causal and explanatory models, address induction
from observational time-series data, and are embedded in a simulation
environment which scientists can use for model development.

The research revolves around a new class of models that consist of
interacting quantitative processes and the problem of inducing such
models from time-series data. Computational challenges that will be
addressed include reducing overfitting and variance, inducing conditions
on processes, handling large, heterogeneous data sets with missing
values, and scaling to complex models. The resulting algorithms will be
included in a trainable simulation environment that lets users construct
models manually or induce them from data, then simulate their behavior.
Experimental evaluation will involve both Earth Science observations
from the Ross Sea and synthetic data.

The trainable simulation environment should let Earth scientists search
the space of candidate models systematically, producing more accurate
models in much less time. Moreover, the novel computational methods
should aid model construction in other fields like systems biology and
engineering. Both the environment and sample models will be utilized
in courses and accessible through a Web site. More information is
available at http://www.isle.org/process.html.